Computer Network Use and Collaborative Design in Different Engineering Discipline

Computer networks are an important technology that contributes to collaborative work among engineers, which is one type of `knowledge networking'. This exploratory study investigates an important assumption frequently made by both technical developers of software tools, and by researchers interested in the conditions and consequences of using computer-based systems: that knowledge networking in design and other fields will reduce the need for co-location. This research aims to develop a framework that will provide insight into how co-location requirements_and hence requirements for information technology mediation---vary across design tasks. The results of his project will help us to better understand the information-technology-related and task oriented factors that underlay co-location requirements. This will help researchers and practitioners to target large technology investments where they will do the most good, and will help to avoid encouraging the use of ineffective and even productivity-decreasing organizational information technology structures where co-location is essential. The research will be based on intensive interviews with mechanical and electrical engineering designers and software developers in five to ten firms.